Tropospheric HOx Experimental Studies

In the past dozen years atmospheric scientists have determined that the hydroxyl radical (OH) apparently plays a pivotal role in controlling the trace chemical composition of the lower atmosphere (troposphere). Hydroxyl radicals (a pair) are produced when an ozone molecule (O ) is decomposed by ultraviolet light to form an 3 energetic oxygen atom which then reacts with a water molecule. It is believed that the hydroxyl radical is the primary species responsible for converting a number of water insoluble reduced chemical compounds (e.g. methane, sulfur dioxide, carbon monoxide, nitrogen dioxide, ammonia and others) into condensable and/or water soluble oxidized species. It is this oxidation by OH which permits these compounds to be cleansed from the atmosphere by precipitation or the gradual settling of small solid and liquid particles. Our understanding of the atmospheric photochemical oxidation process has been developed primarily by laboratory and computer modeling studies. To date it has not been possible to evaluate the completeness of the theory of tropospheric photochemical cycles. To test this theory requires making direct atmospheric measurements of OH and its relationships to the compounds believed to be responsible for its creation and destruction. The detection of the hydroxyl radical in the ambient atmosphere has been a primary objective of atmospheric chemists for the past several years. The difficulty in measuring this species results from its exceedingly low concentration in the atmosphere. Theory predicts OH to be in concentrations one million to a hundred million times smaller than ozone, its parent compound (which itself has a tropospheric concentration of less than one part in ten million). The techniques presently available for measuring OH are not sufficiently sensitive to make the necessary measuremetns in the atmosphere to study the chemistry of this important species. This research is aimed at constructing and testing a portable instrument for the simultaneous determination of tropospheric OH and the hydroperoxyl radical (HO ) in clean air at ground level. 2 Initial tests will be carried out in the vicinity of Portland and then at the Oregon coast. Field measurements will determine the diurnal variation of OH and HO in the marine boundary layer at 45 2 degrees north latitude. Perturbation experiments will be carried out to determine the in situ kinetic response of OH and HO to changes 2 in light intensity. The observations will be interpreted with tropospheric models. In addition to providing an initial examination of fast photochemistry and providing data of value to atmospheric chemists, these experiments will enable the instrument to be ready for intercomparison with other OH and HO measuring devices and for 2 participation in field tests of the fast photochemistry of the troposphere.